Development of Calculus

In a cooperative venture, Duke University and the North Carolina School of Science and Mathematics - a high school - will develop a detailed syllabus for a new calculus curriculum. Both schools will experiment with the use of computer algebra systems and prepare sample modules. Duke University will run a small prototype calculus laboratory for the development and testing of interactive experiments and writing as a learning tool in mathematics. Central themes will include appropriate use of mathematical and physical tools, identification of a concept and its inverse, use of transformations, and relationships between calculus and real world problems.